ASA/SRS-NSF Research Program

Proposal Number: SRS-0209274
Principal Investigator: Smith, William B.
Proposer: American Statistical Association

Abstract

The unsolicited proposal from the American Statistical Association (ASA) to the Division of Science Resources Statistics (SRS) of the National Science Foundation involves establishing an ASA/SRS-NSF Research Program. The Program would entail having an outstanding academic researcher/fellow conduct interdisciplinary research using SRS data. The researcher/fellow would be selected through a rigorous, competitive application process. The proposed program is similar to other that ASA has established with several other Federal statistical agencies including the Bureau of the Census, the Bureau of Economic Analysis, the National Center for Health Statistics, the National Center for Education Statistics, and the Bureau of Justice Statistics.